National Congress on Engineering Education to be Held on November 20-22, 1986, in Washington, DC

The National Congress on Engineering Education will be held in November 1986. The purpose is to obtain a consensus for actions that must be taken in engineering programs to maintain US technological leadership and a literacy and knowlege level compatible with a college education in engineering. Three major issues committees have met to analyze current studies and reports that impact on engineering education to obtain recommendations for action items to present to the congress in November. The three major issues are: (1) faculty; (2) curriculum; and (3) laboratories, computers, and educational technology. The actions items determined by the three committees, together with those of the congress, are incorporated into accreditation criteria wherever appropriate. Other items are referred to the appropriate implementing authorities for consideration. The objective is to bring engineering education to a level which not only serves the needs of the profession, but also provides the necessary overall education desired for college graduates.